A Multiple Input 90 Millimeter Spectrograph

This Small Business Innovation Research (SBIR) Phase I project is in the general area of instrumentation development in the subfieldof optical spectroscopy. Recent years have seen significantadvances in light detection technology and computer processingpower. There are two dimensional array detectors, e.g. CCDarrays, that are entirely capable of performing as scientificdetectors. Modern small computers are capable of handling thevast quantities of data produced almost instantaneously by thesedetectors. The missing building block in the development of aspectrometer that can take advantage of these developments is anoptical system capable of two dimensional imaging. Chromex hasdeveloped a method of producing high quality aspheric optics. They will use this technology to produce a full.spectrum,multiple.input, flat.focal.field stigmatic imaging spectrograph. The spectrograph will be small, 90mm focal length, and extremelyrugged. A fiber optic interface will be developed that will allowup to eight simultaneous inputs. The ability to measure multiplespectra rapidly and simultaneously will make this device apowerful tool in many applications.